CRCNS Research Proposal: Computational and Neural Mechanisms of Learning in Speech Motor Control

Adaptive and continuous learning is an essential part of human intelligence. For humans, this kind of intelligence is embodied, constrained by how humans physically move in the world. Understanding adaptive and continuous learning in the context of a physically constrained motor system is key to understanding embodied human intelligence, and this project studies this in the context of speech learning. When faced with the challenge of pronouncing a new name or a word, humans must learn to coordinate a new sequence of movements of our tongue, lips, and jaws to produce the desired sounds. Learning is also necessary for maintaining accurate speech production if there are ongoing changes to the vocal apparatus. This project investigates the neural computations that implement these different kinds of embodied learning. Theories of speech motor learning are developed and validated with brain imaging studies in humans. This work has broader applicability to improve brain computer interfaces that support speech and language function. Additionally, it aims to lead to a deeper understanding of various speech impairments and the development of novel treatments for them.

Since speech production is a complex process, powerful theoretical models have been developed to help understand the critical computations for the control of speech and how they are implemented in the brain. This project extends these models to account for the two well-known types of learning in speech motor control 1) learning how speech sounds are sequenced to efficiently produce new words, and 2) learning to maintain accurate speech output in response to changes to the body or the environment. The investigators test quantitative model predictions by comparing model predictions with real-world speech behavioral and functional brain imaging data. This work brings together expertise in computational neuroscience, speech psychophysics, artificial intelligence, and whole-brain magnetic field imaging to develop and test theories of these two important forms of speech motor learning.